EPSCoR Research Fellows: NSF: Building Hawaii's First Advanced Manufactured Electronics (AME) Research Infrastructure for Regional Innovation and Workforce Development

This Research Infrastructure Improvement (RII) EPSCoR Research Fellows project provides a fellowship to an Associate Professor and training for an undergraduate student at Hawaiʻi Pacific University. This work is conducted in collaboration with Dr. Eric MacDonald at the University of Texas at El Paso. Through the fellowship, the principal investigator will receive advanced training in new manufacturing methods for producing three-dimensional electronic devices. The project will establish Hawaiʻi's first research capability in Advanced Manufactured Electronics by transferring specialized knowledge and best practices from the host institution to Hawaiʻi Pacific University. The new research infrastructure will support hands-on student training, interdisciplinary engineering research, and future collaboration with academic and industry partners. By expanding Hawaiʻi's research infrastructure and workforce development capacity, the project will help prepare students for careers in advanced manufacturing while strengthening the state's ability to compete in emerging technologies important to economic growth and national security.

This project will establish a new research capability in Advanced Manufactured Electronics at Hawaiʻi Pacific University through faculty training, technology transfer, and laboratory development. The fellowship will investigate additive manufacturing workflows that integrate structural, dielectric, and conductive materials into three-dimensional electronic systems using Direct Ink Writing and/or Directed Energy Deposition. The principal investigator will develop, optimize, and replicate manufacturing processes acquired through collaboration with the University of Texas at El Paso and apply them to fabricate and characterize functional multi-material substrates and nonplanar radio-frequency antennas. The project will establish an open-source manufacturing platform, standardized fabrication and characterization workflows, and a dedicated research laboratory to support future research in advanced manufacturing and embedded electronics. These activities will be integrated with undergraduate student training, curriculum development, interdisciplinary collaboration, and future competitive research proposals, creating a sustainable research infrastructure that expands advanced manufacturing capabilities and workforce development opportunities in Hawaiʻi.
This project is supported by the EPSCoR Research Infrastructure Improvement Program: EPSCoR Research Fellows (ERF). The ERF program supports early- and mid-career investigators in eligible jurisdictions to develop collaborations at the nation’s private, government or academic research institutions.